Enhancing Mathematics and Science Teaching by Using Computational Science

9453913 Mansergh Educational Cooperative Service Unit of the Metropolitan Twin Cities Enhancing Mathematics and Science Teaching by Using Computational Sciences This 42 month leadership project trains teams of secondary science, mathematics and computer science teachers in computational science techniques. Two groups of 35 teachers from the Twin Cities area receive 18 months training each. This includes three weeks in each of two consecutive summer summers and periodic sessions during the school year. Participants work in teams of three from schools or districts and support, enrich, and reinforce each other. These teams in turn train other teachers through a variety of workshops, seminars, and classes held around the state and region. They develop discipline-based activities which are shared with their colleagues and made available on the Internet nationwide. Continued support for the project is anticipated because both ECSU and TIES, the project partners, are established region service organizations which work closely with school districts, colleges and universities as well as local businesses and industries. The project includes involvement from many businesses in the area, all working to support the project through speakers, site visits, resources, mentors, and other methods. Cost sharing on the project is 100%. ***